SGER: Universal Phonology Through Harmony Theory

ABSTRACT The goal of this project is to develop and explore a new conception of the phonological component in generative grammar. On this view, the basic universal principles of phonology measure the well-formedness of phonological representations; individual grammars are constructed by weighting the universal principles and computing their interaction via the principles of Harmony Theory. The representation assigned to a given form is that which rates most highly in the harmony-theoretic combination of well-formedness along its various dimensions of phonological organization; that which optimally satisfies the various (sometimes contradictory) constraints placed upon it. The approach promises to anchor phonology directly upon a set of universal principles, a goal which has proved elusive in standard generative phonology. The key is replacing the familiar derivational, rule-based computational format with one directly based upon the idea of optimization. The main object of study will be systems of stress and syllable structure.